Biogenesis of a Neurosecretory Protein

Neurotransmitters and hormones are synthesized in specialized tissues and are secreted from the cells of those tissues in response to environmental stimuli. When secreted, these molecules provide signals to other cells which enable these cells to adapt to the physiological conditions. The requirements of the cell for increased or decreased amounts of transmitter or hormone changes with the environmental status of the organism. The synthesis of neurotransmitters and hormones is catalyzed by enzymes which are present only in those cells destined to secrete the neurotransmitter or hormone. The focus of this study is to understand the mechanism of biosynthesis of the enzyme which catalyzes the synthesis of norepinephrine, a hormone and neurotransmitter which is important for cardiovascular function and adaptation to stress. This enzyme, dopamine beta-hydroxylase, is localized to the cellular secretory granule, which is the compartment which stores the neurotransmitter. Within this compartment, the enzyme is in two forms; one form is in the soluble contents of this granule, while the other form is attached to the membrane which forms the boundary of the granule. This research project will study the biochemical differences between these two forms which are important for the different localizations. An antisera will be prepared which specifically recognizes amino acid residue, which may be present in the membrane-bound, but not the soluble portion of the protein. This antisera will be used to monitor the presence of this segment on two forms of the protein. The results of these experiments may uncover a novel mechanism of protein biogenesis.